Addition of Quantitative X-Ray Microanalysis to the Geology Curriculum

Bates College is purchasing a quantitative x-ray microanalysis system with image enhancement and processing capabilities, which will enable students to be exposed to modern techniques in analysis of geologic materials, improve the school's instructional capabilities, and strengthen their program of undergraduate research. The x-ray microanalysis system will be attached to a newly acquired scanning electron microscope. The addition of this equipment to the geology curriculum allows for 1. the introduction of a new course in quantitative microanalysis of geologic materials, 2. considerable improvement in laboratory exercises offered to upper level students, and 3. modernization and improvement of student thesis research, independent study, and faculty-sponsored research. The equipment should enhance student interest in the geosciences, and provide students with state-of- the-art, hands on experience in techniques used in graduate work and industry. The college will contribute support equal to the award.